Photodetachment Dynamics

Larson The research centers on experimental studies of the photodetachment of negative ions in external fields through the production and detection of wavepackets using picosecond and subpicosecond laser pulses. Penning traps are used to contain the negative ions. A second project, the study of two electron correlations in alkali negative ions will shed light on the threshold laws for the ejection of two electrons by electromagnetic radiation.